U.S.-Brazil Collaborative Research: Fusion Reactions and Neutrino Astrophysics

This US-Brazil award provides support for Dr. Akif Baha Balantekin, University of Wisconsin, to collaborate with Dr. L. Felipe Canto at the Universidade Federal do Rio de Janeiro in Brazil on fusion reactions and neutrino astrophysics.

This program is in the area of theoretical physics. The emphasis is on low-energy fusion reactions taking place in stellar and other astronomical environments and problems in neutrino astrophysics. In the former area, the research will concentrate on radiative capture reactions and related electromagnetic probes. In the latter area, the research will focus on solar and supernova neutrinos. Theoretical research in these areas is chosen to have a close coupling with the ongoing experimental programs in the US and Brazil.